Phase Distribution Phenomena in Multiphase Systems

A combined theoretical/numerical modeling and experimental research program on two-phase flow is to be carried out. The modeling portion is based on an extension and generalization of single-phase non-isotropic turbulence closures. Turbulence and phase distribution measurements will be made with a 3D Laser Doppler Anemometer system. The dispersed phase will consist of particles with neutral, negative, and positive buoyancy, and the flow configuration will be with gravity both aligned as well as perpendicular to the flow. Thus, the study is relevant to such applications as vertical bubbly flow as well as horizontal slurry flows.